Playful Mathematics: An Exploration of Design and Learning

Mathematics is a notoriously disliked subject; there is so little stigma associated with being "bad at math", that educated adults openly describe themselves in this way. There are many reasons for math's unpopularity; chief among them is that school mathematics seldom offers opportunities to engage with the richness of this potentially fascinating subject. As a result, the mathematics education pipeline in the United States is more often a filter than a pump, siphoning students out rather than bringing them along. Children have libraries to help them fall in love with literature: where do they get a chance to fall in love with math? This project presents a unique opportunity to study children engaged with mathematics in an informal setting, the Minnesota State Fair, facilitated by mathematically knowledgeable volunteers. The Math On-a-Stick mathematical playground provides a place for children to engage with mathematics by exploring patters, asking quantitative questions, and investigating shape and space to mathematize their play. The project will observe and videotape this engagement to inform the design of mathematical learning environments in a variety of outside of school time settings, such as after school programs and summer camps, that are accessible to a wider range of the population. This project is co-funded by the EHR Core Research (ECR) and Advancing Informal STEM Learning (AISL) programs. The ECR program emphasizes fundamental STEM education research that generates foundational knowledge in three thematic areas: STEM learning and learning environments, broadening participation, and STEM workforce development. The AISL program seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments.

The project will investigate three research questions: (1) How does the design of various parts of the exhibit differently support rich mathematical interactions between children and mathematicians? (2) How do children engage different parts of the exhibit? How do differences in engagement relate to (a) exhibit design and (b) prior mathematical experience? (3) How do exhibit volunteers, mathematicians, and caregivers interact to support (or undermine) students' mathematical play? The project will use participant observation and videography to capture visitors' activities through the exhibit, analyzing them as qualitative case studies.